Student Travel Grant for Hybrid Systems: Computation and Control

This is a proposal to support graduate students to attend the Third International Workshop
on Hybrid Systems: Computation and Control, to be held March 23-25, 2000, in Pittsburgh,
PA. The goal of this workshop is to provide an international forum for presenting novel
results, methodologies, and tools for the design of hybrid dynamic systems. The term
'hybrid systems' has emerged over the past few years to describe the increasing number of
computer-controlled systems that require a mixture of continuous and discrete state
variables to be modeled effectively. The lack of a satisfactory, cost-effective
methodologies for designing reliable and efficient hybrid systems is widely acknowledged.
It is the purpose of the workshops on hybrid systems to develop a scientific community
and a body of knowledge that synthesizes discrete and continuous technologies. The
meeting will include four invited plenary speakers and more than 30 contributed
presentations selected by a program committee from submitted extended abstracts.
Attendance of approximately 100 researchers is expected. This proposal asks for financial
support for approximately 20 graduate students to attend the workshop.